No Man's Island: An Historical Inquiry into the Nature of Property Rights at Sites of Industrial Extraction in the Svalbard Archipelago

The Office of Polar Programs is providing travel support for Dr. Jennifer L. Smith to visit the laboratory of Dr. Patrick E. Martin, Professor of Archaeology, at Michigan Technological University. Dr. Smith intends to submit an application for a Postdoctoral Fellowship in Polar Research, and visiting her potential mentor will help her prepare her fellowship application.